RUI: Determinant Identities, Szego Type Limit Theorems, and Connections to Random Matrices

Determinants of Toeplitz matrices have arisen in many branches
of mathematics and physics. For example, they describe the
spin correlation between two sites in the classical Ising
model of a two-dimensional magnet. More recently, they have
been used to describe statistical properties of random
matrices, whose eigenvalues model complicated systems.
The asymptotic behavior of determinants of Toeplitz matrices
is described using the Strong Szego-Limit Theorem and its
generalizations. Recently, this theorem was improved in the
sense that a new identity was found for the determinant that
allows one to find very good estimates for the error in the
Szego expansion of the determinant. The major purpose of
this project is to extend this identity to other classes of
matrices and operators. This has applications such as finding
the distributions of linear statistics in random matrix theory,
as well as finding the level spacing of the eigenvalues.

Many physical systems possess such complicated behavior that
exact predictions become impossible, so instead average
properties of these systems are studied. For example, the
energy level of a particle of a compound nucleus in a slow
nuclear reaction has complicated unpredictable behavior.
Random matrix theory provides mathematical models that allow
a simulation of the energy levels of the particle.
One of the tools that is used to study the statistical behavior
of the random matrices and thus of the energy levels,
is a determinant of a Toeplitz matrix. A determinant is a
number that yields important information about a square
array of numbers. These Toeplitz determinants occur in many
branches of applied mathematics. One classical use was to
study the properties of models of two-dimensional (or very
thin) magnets. Determinants are often hard to compute.
However, there is a result, called the Strong Szego Limit
Theorem, which yields an estimate for such a determinant.
Recently, this estimate was improved so that error terms
could be calculated more easily. One major goal of the
project is to extend these results to other classes of
determinants. This will yield information about the energy
levels of complicated systems in other types of models,
not covered by the Toeplitz case.